Support for Student Speakers at MFPS

Proposal Number: 0080973
PI's Name: Bloom, Stephen L.
Institution: Stevens Institute of Technology
TITLE: Support for Student Speakers at MFPS '00

Abstract

This project provides funding to offset the cost of
graduate student attendance at the Workshop on Mathematical
Foundations for Programming Semantics, MFPS-2000,
to be held at Stevens Institute of Technology April 12-16, 2000.
Invited speakers for MFPS-2000 include Samson Abramsky,
Rance Cleaveland, Andy Gordon, Robin Milner, Peter O'Hearn,
and Dana Scott, each of whom is known for outstanding interaction
with students. MFPS has always been hospitable to graduate students,
usually attracting a good number of students, who present a
significant number of talks. In addition, because of the location,
graduate student participation could be unusually high.
Attendees at this event are expected to number less than 100,
permitting significant student-researcher interaction.